Problems in Low Dimensional Topology

DMS-0306062
William Menasco

The investigator's research is focussed on understanding two
important phenomena in low dimensional topology: first, understanding
exactly what is accomplished through the use of stabilization in
relating two equivalent closed braids; and second, understanding when
there is the occurence of topologically essential surfaces inside a
3-dimensional manifold, i.e. when is a 3-manifold Haken. The classical
stabilization result is "Markov's Theorem" which says that any two closed
braid representatives of the same oriented link type in the 3-sphere are
related to each other through a sequence of moves (isotopies): conjugation,
stabilization and destabilization. Unforunately, the Markov Theorem only says
a sequence exists, but understanding exactly what this stabilization sequence
accomplishes has largely remained a big black box until recently.
The first peek inside the stabilization black box is the "Markov Theorem
Without Stabilization" (MTWS), a product of a long collaborative effort with
Joan Birman. The MTWS can tell one exactly what stabilization achieves in
an isotopy between braids and one of the main goals of the project is to
exploit this understanding in the areas of link classification, link
invariants and contact geometry. An essential surface inside a 3-manifold
tells one about the geometry of the space. Not all 3-manifolds contain essential
surfaces, but it is possible that for a given 3-manifold M that is
lacking any essential surface there is another 3-manifold M' which has
essential surfaces and M' "covers" M. Understanding when a 3-manifold M
has a such a corresponding cover M' is the focus of the "Virtual Haken
Conjecture". The investigator in collaboration with Joseph Masters &
Xingru Zhang is pursuing a new strategy for attacking this conjecture in
a general setting.

The 3-dimensional space in which we live is unique in its ability to retain
information about the "knottest" of a collection of closed loops (think of
a collection of tangled strands of pearls inside a jewelry box). This phemomenon
of knottest does not occur in any lower or higher dimensional space---the
advantage of a 5-dimensional jewelry box is that a collection of
strands of pearls can never be tangled. Thus, as any micro-biologist working with
DNA strands will tell you, knottest is an important feature
of our 3-dimensional existence that needs to be understood. Basic questions
arise. When are different two knots (single strands) or links (multiple strands)
illustrating the same type of knottest---that is, when is there a sequence of
motions of one link that move it around in 3-space so that it appears
like that other link? When is When is a knot which appears to be tangle in fact
equivalent through motions a simple circle that can be laid flat in a plane?
Motions can be very complex (think of trying to untangle
a mass of fishing line). The investigator's research has focussed on understanding
and codifying these motions (in collaboration with Joan Birman, "The Markov Theorem
Without Stabilization"). Also in trying to understand 3-dimensional spaces we
can study "essential" surfaces that occur in them, i.e. surfaces that in the space
can not be crashed down to a point. Such surfaces can give us a type of coordinate system
for navigating in the space---astronomers are very interested in determining if our
universe has any essential surfaces. If a 3-dimensional space has an essential surface
then it is called "Haken". Not all spaces are Haken, but some that are not can be
'painted over' or "covered" by ones that are, i.e. they may be "Virtually Haken".
The investigator in collaboration with Joseph Masters &
Xingru Zhang is pursuing a new strategy determining when a 3-dimensional
space is Virtually Haken.